Scientific Parallel Processing Applied Research Center (SPPARC)

This grant provides infrastructure support for the development of the research and educational activities of the Scientific Parallel Processing Applied Research Center at the University of the District of Columbia. The support includes computing equipment, undergraduate student assistantships, and faculty release time. The principal investigators will conduct research in (1) intelligent Databases and Expert Systems for Supercomputers, and (2) Cognitive Sciences for Storage and Processing of Images. The educational component of this project provides undergraduate research experiences, summer internships, student participation in symposia and conferences, and peer mentoring.***